NGS: Open Compilation for Self-Optimizing Generic Components

EIA-0131354
Andrew Lumsdaine
University of Notre Dame

Next Generation Software: Open Compilation for Self-Optimizing Generic Components

This proposal is to advance the state-of-the-art in high-performance software specifically related tot he design and compilation of high-performance scientific libraries. This work will address two of the most important issues-code complexity and performance optimization-by applying and extending two emerging programming paradigm: generic programming and concept-based optimization. The vehicle for this work will be development of an integrated framework consisting of open compilation and generic library technologies. By simultaneously developing the compilation technologies and the library technologies-and by providing mechanism to couple the two together-the whole will be greater than the sum of its parts